Application of the Stabilization Theory of Continuum Dynamics to Nanoelectric Modelling

9408881 Taylor Efficient computational algorithms will be developed to compute device characteristics of layered heterostructure devices (GaAs, GaAlAs) for resonance tunneling diodes, quantum dots, etc. The scattering algorithms will be adapted from computational chemistry ton nano-device applications including the effects of external magnetic fields. The PI will collaborate with the National Center for Computational Electronics at University of Illinois to obtain the materials parameters as well as the important physics to be resolve in the computational experiments. *** v s t racteristics of layered heterostructu $ $ ( F / L L 1 Times Symbol " Helvetica 5 Courier New L " h e e ( S R:\WW20USER\ABSTRACT.DOT abstract Alicia E. Harris Alicia E. Harris